Dissertation Research: An Investigation of the Acquisition of a Cultural Emotion Schema in Northern Sumatra

This project supports a graduate student in cultural anthropology who is studying the cognitive structure of emotions in a rural area of Indonesia. Studies have shown that cognition depends on organized structures of information, called "schemas". Little is known of how children learn such schemas. This project will explore how schemas develop in the process of acquisition by children, how children's use of them changes, and how children acquire them through social interaction. Methods will involve direct observation and in-depth interviews. This research is important because comparative cases and analyses of how children learn cognitive elements will give us material useful in helping us understand how to deal with deficits and abnormalities in this critical procedure.